Cenozoic Tectonism of the Ross Sea, Antarctica

9221362 Cooper This award supports the United States Antarctic Research Program component of a joint U.S. Italian project to investigate the acoustic characteristics of the lithosphere of the Ross Sea and the adjacent Transantarctic Mountains. The joint project involves deployment of recording seismometers along a line at approximately 76 S, from the East Antarctic Ice Sheet, across the Transantarctic Mountains, and across the Victoria Basin portion of the Ross Sea. Land based seismometers and ocean bottom seismometers will be deployed to gather seismic reflection and refraction data that will be used to infer the structure and composition of the lithosphere in the region. ***